Uplift and Seismicity in Northern Southeast Alaska: Tectonic Stress or Glacial Unloading?

9870144 Motyka A major question in active tectonics relates to the relationship between glaciation and active fault motion. Can the changing thickness of ice caps trigger tectonic motions or even earthquakes? This project outlines a work plan that will go a long way to discriminating between uplift due to active tectonic processes and to deglaciation. In this project several methods will be employed to obtain uplift histories. These include stratigraphy, dendrochronology, and GPS measurements that will reoccupy tidal benchmarks. This proposal will provide the data base necessary to discriminate between glacial and tectonic deformation, and allow strain and deformation partitioning in this region of Alaska. If successful it will also provide a longer history of deformation and the earthquake cycle in Alaska which can be compared to other troubling quiet zones of Cascadia.